Workshop Support for US HE Physicists to attend XXXXth Rencontres de Moriond Conferences; La Thuile, Italy

The proposal requests funding for partial support for U.S. scientists to attend either of two sequential high energy physics conferences in La Thuile, Aosta Valley, Italy.

The first conference (March 5-12, 2005) addresses Electroweak Interactions and Unified Theories. The subjects are Flavor Physics, Astroparticles and Dark Matter Searches, Neutrino Physics, Precision Tests of the Standard Model, and searches for new particles and for theories beyond the Standard Model.

The second conference (March 12-19, 2005) concerns Quantum Chromodynamics (QCD) and High Energy Hadronic Interactions. The topics to be covered include Monte Carlo Tools, Production and Decay of B Mesons, Spectroscopy of Charmed Mesons, Light Quark Spectroscopy, Progress in Lattice QCD, Progress in perturbative QCD, Heavy Ion collisions, and Searches for new phenomena and physics at future accelerators.